Upgrade of UCLA's Unidata Node

Abstract ATM-9527071 Robert G. Fovell University of California Los Angles Upgrade of UCLA's UNIDATA Node Funds will upgrade the Internet Data Distribution (IDD) node at the Department of Atmospheric Sciences at the University of California at Los Angles (UCLA). Upgrading the computer power and memory will allow better support of existing and future sites with minimum impact on activities locally at UCLA. UCLA will serve as a short term data archive sight to provide the community with data in the event of services interrupted at other sights.